PATH: Functionally Graded Cement-Based Materials for Residential Construction

This research project addresses the production of cement-based materials for residential
construction using extrusion so as to produce functionally graded microstructures and then
measure and compute the engineering properties provided by such microstructures. The
two primary objectives are: to develop construction components (e.g., siding) with graded cellular
structures that are highly porous in the center and dense on the outer surface, thereby reducing the
density without producing high permeability and low strength usually associated with highly
porous materials and to produce components (e.g., beams) with graded fiber
reinforcement such that highest concentration of fibers occurs at the bottom of the beam where
the tensile strain is greatest, thereby taking advantage of the substantial mechanical benefits of
fibers in extruded cement-based composites with a lower overall fiber volume through efficient
engineering of the microstructure. Co-extrusion of multiple constituents and multiple cycles of
extrusion will be used to process these materials. Specimens will be examined using scanning
electron microscopy to determine whether the processing is producing the desired
microstructures. Engineering properties (modulus, Poisson ratio, strength, fracture toughness)
will be computed based on microscopic and macroscopic scales. The computed properties will be
compared with measured properties and with observed microstructures so as to demonstrate
validity of the computation and to refine the computational method as needed.

A relevant broad impact of the proposed research is its potential to increase the use of advanced
cement-based materials in residential construction. These materials have important advantages
over the more traditional wood-based materials (fire resistance, durability), however, their use has
been limited by their high density and low toughness, issues addressed directly by this research.
An industrial advisory group will help assure that the research is suitably innovative, industrially
feasible, and economically viable The proposed research will also impact education, adding studies of residential
construction in the civil engineering curriculum and making studies of construction materials
available to students in architecture.